Mathematical Sciences: Differential Equations, Continuum Mechanics and Thermodynamics

Work on this project will span areas of mathematical research in partial differential equations to studies on the mathematical principles underlying of mechanics and thermodynamics. Included in this effort will be the analysis of ground states for nonlinear operators. These are solutions of second order elliptic partial differential equations of divergent type which become small at infinity. The equations not only have physical significance, but also occur naturally in geometric studies involving mean curvature of surfaces and their generalizations. Although ground states are known to exist in many classes of equations, it is not known whether or not any exist having finite energy. Work will continue studying this question. On the foundational level, studies will focus on the principal axioms of classical mechanics relative to the balancing of linear and angular momenta. The independence and reasonableness of these axioms will be challenged through the introduction of a modified axiom system in which neither of the main balance axioms is postulated and in which inertial frames are not required. Instead, a point of view in which the invariance of power or generalized work, or the invariance of balance of thermodynamic energy, should imply the balance of momentum, will be taken. Another line of investigation continues an extensive study into one of the primary open questions of thermodynamics: the existence and uniqueness of entropy for a given thermodynamical system. Only in irreversible processes is this unclear - even existence can be in doubt. A particular application to this research would be to that of a compressible Navier-Stokes fluid where entropy is only verifiable under an additional hypothesis of fiberings of the flow.